NER: Light-Weight Minimally-Intrusive Damping Films Featuring Carbon Nanotubes

This project investigates the potential for augmenting damping in
composite structures by taking advantage of the energy dissipation between
densely packed, highly interconnected networks of multi-walled carbon
nanotubes (nano-films) . The novel, nano-engineered damping films
developed in this project are expected to offer several advantages:
1) Nano-films show no degradation in structure/properties upto 600 deg C
and are expected to offer superior performance and reliability for high
temperature applications. 2) Nano-films do not exhibit resin penetration
when co-cured within composite structures and could potentially be
seamlessly integrated into heterogeneous systems. 3) Nano-films offer
multi-functionality in terms of enhanced stiffness in addition to damping
augmentation. The specific stiffness of nano-films are expected to be an
order of magnitude greater than commercially available viscoelastic
polymer films. This research project is directed towards further exploring
and developing these concepts so as to enable the efficient synthesis of
these novel multifunctional materials into multi-scale structural systems.

The project involves strong interdisciplinary collaboration between
material science (patterning and assembly of nanostructures) and
mechanical engineering (damping and stiffness increase in composites).
The project will contribute to the training of 1 Ph.D student and several
undergraduate students (under the Undergraduate Research Projects - URP
Program) at the Rensselaer Polytechnic Institute.